Workshop: Fundamental Research Needs in Building Control Systems

To provide focus to fundamental research priorities in the total buildings control area, a two-day workshop will be held by Drexel University in the fall of 1985 on "Fundamental Research Needs in Building Control Systems." Approximately 24 university researchers as well as industrial representatives will participate; they will be selected so that all workshop participants will have knowledge and experience covering the totality of the buildings and control area. Three panels will be organized based upon specific topic areas and research issues submitted in advance by each invited participant. A final report of the workshop, including specific recommendations, will be prepared.